Mechanical Engineering Curriculum Workshop

9615575 Suh This award is to partially support a Mechanical Engineering Curriculum Workshop. This workshop will evaluate and consider future directions on how to retain the core disciplines while letting other educational aspects evolve. Since the mechanical industry is not primarily driven by technology, the mechanical engineering education curriculum must reflect this. The results of the workshop will be a widely disseminated document so that others can benefit from the evaluation that will take place. ***